Nanoscale Dynamic Analysis of Surface Properties of Biopolymers

Nanoscale Dynamic Analysis of Surface Properties of Biopolymers
Grand CMS-0528506

Abstract

The longevity of joint implants and the efficiency of catheterization
techniques greatly depend on fundamental understanding of the dynamic
surface properties of polymers used in these applications. The motivation
of this research is to bridge the gap of knowledge of the dynamic response
of biopolymer surfaces. The research consists of the following main tasks:
(a) gamma-irradiation and plasma-assisted surface modification of
medical-grade polyethylenes, (b) characterization of the surface topography
and chemical behavior of the treated polymers, and (c) investigation of the
dynamic behavior of both unmodified and treated polymers using dynamic
force microprobe analysis. The significance of this research is the basic
insight into nanoscale surface phenomena of biopolymers with direct
implications in biomedical applications.